Engineering Research Equipment Grant: High Power Copper Vapor Laser

This award is partial funding for the purchase of a high power copper vapor laser for use as a source of illumination for imaging various rapid processes. The major project involves particle dispersion in turbulent shear flows. Other uses include investigating the structure of burning liquid pools and the chipping and tool wear processes during machining. The major project should help clarify the role of particle inertia on the transport properties of small particles in turbulent flows. Mixing of powders and sprays is important in many combustion and gas- solids contacting processes.